CARGO: Multi-Scale Topological Analysis of Time-Evolving Shapes

DMS-0138420
Jarek Rossignac

We propose to develop the theoretical foundations and a
set of practical computing tools for the automatic analysis
of time-evolving shapes. Given a family of surfaces that
represent the boundary of a 3D shape whose geometry and
topology change with time, we propose to construct a
higher-dimensional multiresolution representation, which
we have named Atlas Transition Diagram, abbreviated ATD,
that will identify and track the morphological and
topological features of the 3D shape as they evolve with
time and with resolution. Our ATD will also associate a
chart to each feature, thus providing a surface-parameterization
that naturally follows the branches and handles of each
shape in the family. The charts evolve smoothly with time
and resolution and are topologically glued together at
their common boundaries to provide a continuous mapping,
S(r,t,u,v;f); f), that, given a feature ff, a resolution rr,
a time tt, and two parameters u and v, will identify a
unique point on the surface and will allow us to trace
its evolution with rr and tt. The theoretical underpinnings
and algorithmic designs that will lead to a practical
implementation of an efficient system for building and
querying ATDs go far beyond simple extensions of Morse
theory, of surface segmentation approaches, and of
multi-resolution techniques, which have so far been
mainly explored for static surfaces in 3D.

Evolving surfaces are important to many scientific
and engineering disciplines, including medicine,
developmental biology, cell biology, computational
fluid dynamics and computer aided design. They may
for example represent the growth of a tumor, the shifting
in position of a vortex over an airplane wing, or the
budding of fingers on the hand of a human embryo. We
propose to develop and integrate a collection of
theoretical and algorithmic tools for the analysis
and automated visualization of such evolutions. These
tools will allow us to partition the evolving surface
into features upon which a high-level description of
the shape of the surface and of its evolution will be
based. Furthermore, they will allow us to track their
points, and thus surface properties, through time and
to better visualize their evolutions through texture
maps that continuously evolve with the features and
highlight their boundaries and natural orientation.
Finally, these tools will help us support queries
about the time and nature of topological changes
in the evolving surface, which may be important for
the automatic analysis and retrieval of scientific
datasets. To achieve these results, we propose to
build a surface representation that is controlled
independently or simultaneously by time and resolution
and to decompose the time/resolution domain into cells
where the surface topology (number of components and
through holes) and its partition into features remain
constant. To validate our theoretical contributions
and to increase their impact on the community, we plan
to develop a prototype implementation for animated
objects with triangulated boundaries. We expect to
make the source code of this implementation and its
programming interface publicly available. We envision
exploring collaborations with application developers
in Science, Engineering, Medicine and Biology to help
us refine and validate this approach.